Expedition-based Education -- Using Outdoor Recreation as the Focus for Interdisciplinary Learning Activities

We propose to develop and distribute a 40- to -50 page manual describing the expedition, and providing specific examples of suitable interdisciplinary activities. These activities will be consistent with the trend towards providing educational experiences which are: --active, hands-on --high-interest --real life --interdisciplinary --cooperative --community-based. We will use canoeing as our primary example. However, we will include general information to enable the teacher to adapt the approach for other outdoor recreational activities. We will encourage schools and canoe liveries to work together to improve the quality of local science programs and to create a generation of students with a greater appreciation of, and concern for, our waterways. Our distribution plan includes approximately 2200 livery owners with additional information on how to approach the schools with this program.